SHF: Large:Collaborative Research: Architecting the Next Generation Memory Hierarchy - A Holistic Approach

The memory system continues to be a major performance and power
bottleneck in nearly all computing systems. And, it is becoming
increasingly more so with major application, architecture, and
technology trends. Embedded applications that acquire and
process real-time data, Internet and cloud applications that have to
analyze large databases, and the exa-scale era HPC applications that
need to crunch voluminous data sets are just a few examples of
increasingly data-intensive applications that require high memory
capacity, performance, and energy efficiency. Thus, the well-known
memory wall problem has become even more difficult to surmount and
needs a fundamental rethinking of the memory hierarchy design for future
computing platforms.

The goal of this proposal is to fundamentally and holistically
rethink the design of the entire memory hierarchy taking into consideration
the emerging device/memory technologies and to exploit the design trade-offs
at different layers of the system stack -- from devices to micro-architecture,
compilers and runtime systems. The solution will cover innovations in
architecting and optimizing the entire memory path consisting of the caches,
on-chip networks, memory controller and main memory. The objective
is to enable 100X improvement in memory capacity over the next
decade, while providing 5X improvement in performance and
10X improvement in energy efficiency. The proposed research has the potential to transform the design of
next-generation memory systems for the multi-core era, which is expected
to be a ubiquitous part of the entire IT sector.
The cross-cutting nature of this research can foster new research directions
in several areas, spanning technology/energy-aware design, computer architecture,
compilers, and system/application software. With the memory system forming
the backbone of nearly every envisioned future application domain, the
broader impact of this research can accelerate the design and deployment
of future applications. This project will enable transfer of research
results to industry, enhance undergraduate and graduate student training
including under-represented students, and contribute to the development of new
research and teaching tools.